ITR: Static and Dynamic Tools for Software Design

Proposal Number: 0086160
Title: Static and Dynamic Tools for Software Design
PIs: Monica Lam and Dawson Engler

This project aims to develop a new programming methodology whereby the
programmer, the compiler and the runtime system all cooperate in
maintaining the integrity of a software program. The proposed system
allows programmers to capture application-level semantics and
invariants of interest at a high abstract level. Whereas specific
tools have been developed by compiler writers to detect specific
common programming errors, this system will allow programmers to
formulate the correctness property or safety criterion that they wish
to check in their programs. It places the full power of sophisticated
static and dynamic analyses in programmers' hands, allowing them to
analyze and manipulate the program at ease. Success of this reserach
will have a significant impact on improving software reliability.

Expected results of this research include (1) a high-level interface
with which the programmers communicate information to the system, (2)
technology for creating new application-specific program analysis, (3)
deep program analysis techniques such as pointer alias analysis and
path-sensitive analysis to improve the precision of the static
checker, and (4) new ways to combine static and dynamic analysis to
locate violations of the stated properties in the code. A prototype
system will be developed and tested on general-purpose codes such as
open-source operating systems, compilers and browsers as well as
embedded systems such as routers and telephone switches.